Tractability of Multivariate Problems

The investigator and his colleague study ways to break
intractability of algorithms for high-dimensional problems. They
focus on high-dimensional integration, explore breaking
intractability either by settling for a stochastic assurance of
small error or by using additional domain knowledge, and further
develop FinDer, a software package for high-dimensional
integration.
The computational complexity of an algorithm is a measure of
the amount of work the algorithm must perform to produce a
solution for given inputs. Usually the complexity is measured in
the size of the problem being solved. For example, finding the
solution of a linear matrix equation in N unknowns --- an
N-dimsional problem --- generally takes on the order of N times N
times N arithmetic operations; the computational complexity of
such an algorithm is N cubed. There is huge interest in solving
high-dimensional problems. Many applications involve functions
of hundreds, thousands, and even an infinite number of variables.
Examples occur in physics, chemistry, mathematical science, and
economics. These problems must usually be solved numerically and
one has to settle for an approximate numerical solution to within
an error epsilon. If a worst case deterministic assurance of an
epsilon approximation is desired, then the computational
complexity usually depends exponentially on the number of
variables; the problem is said to be intractible. The
investigators study breaking intractability either by settling
for a stochastic assurance of small error or by using additional
domain knowledge. The use of formalizing additional domain
knowledge is a powerful new idea. In particular, the
investigators study under what conditions a double win is
achievable for the important problem of high-dimensional
integration: when does an algorithm to compute the value of a
high-dimensional integral both converge faster than a Monte Carlo
algorithm and do so with a worst case deterministic assurance?
They apply the theoretical results to improve the FinDer software
system for computing high-dimensional integrals. This new
paradigm is applied to other problems of computational
mathematics.